Supplement for Undergraduate Research Support

The primary task proposed is to develop the theory and technology to realize miniaturized, efficient power magnetic components for use in advanced low-voltage (1.5 - 5 Volts) microelectronic power supplies, which will be distributed as board-level "components" having very high efficiency (95%) and very high power density (100 Watts per cubic inch). The technology is essential because conventional methods to fabricate power transformers and inductors prove inadequate to realize miniaturized, high-performance components reproducibly and cost- effectively. To be developed are alternate magnetic configurations, electrical and mechanical models that are useful at circuit and system levels and for simulation, fabrication techniques, and design methodology with yield emphasis. Also proposed is the development of a Simulator for Power Electronics Circuits and Systems, a much-needed CAD tool in power electronic engineering. Basic features to be realized are behavioral and hierarchical modeling, event-driven scheduling, variable and multiple time steps, and efficient numerical algorithms for switched-mode networks. Models for power electronic components, functional blocks, and converter topologies are also included. Curriculum and laboratories will be established to produce students capable of pursuing a career or performing research in power electronics.